Presidential Young Investigator Award (Computer Research)

A heterogenous distributed database is a system of non- integrated and possibly autonomous database management systems that employ different strategies for data and/or transaction management. The individual databases comprising the heterogeneous database system may differ in data models, data definition and manipulation languages, transaction management (including concurrency control and commit protocols), and internal data structures. The resulting incompatible systems create "islands of information" that isolate users. The goal of the heterogeneous database project is to bridge these islands by presenting users with a centralized and homogeneous view of the heterogeneous distributed databases. Hiding these incompatibilities may involve resolving issues in architecture and operating systems, in addition to database management systems. Well accepted principles in serializability and correctness must be redefined in this new envoronment. New concepts in autonomy, heterogeneity and integration must be investigated. As a result of this research, in database management systems of the future, existing data will be accessible globally without costly and time consuming redesign or restructing of constituent databases. Owners of existing databases will be able to join or leave a federation of element databases at will.